A High Speed Radar Processor for Improved Studies of the Earth's Ionsphere and Upper Atmosphere

Djuth 9304571 A high speed radar processor for improved studies of the Earth's ionosphere and upper atmosphere. Many emerging techniques for the operation of large radar facilities used for atmospheric research require high data throughput rates and computer processing speed. As a result, much of the data is averaged in a way that adversely affects the spatial and temporal resolution of the measurements. The computer system developed as part of this Phase II SBIR award will greatly increase the utility of a variety of existing radar systems through the use of a flexible, high-performance radar processor. Preliminary tests at Arecibo Observatory in Puerto Rico indicate that major improvements i the resolution and accuracy of the radar observations can be achieved through the implementation of computationally intensive radar techniques. The Massively Parallel Spectral Processor developed under this award can be directly applied to a wide range of large to mid-sized radar systems used to probe the Earth's atmosphere. It can also be adapted for imaging radar applications, incorporated into certain tactical radar systems, and converted into a processor for the nuclear sciences. ***